REU Site: Undergraduate Research Experience in Physics at Wooster

9619406 Garg The Department of Physics at the College of Wooster will establish a Research Experience for Undergraduates (REU) Site. Eight students will be recruited from Wooster and from other primarily undergraduate institutions. Students will participate in research which includes experimental studies of liquid crystals, binary fluid mixtures and polymer networks, and theoretical studies in nonlinear dynamics. %%% The REU project at the College of Wooster will involve students from primarily undergraduate institutions in frontier research and will develop in the undergraduates a motivation to pursue careers in science and engineering. ***